SBIR Phase I: Sublancin 168 for Bacillus Spores Detection, Inactivation and Decontamination

This Small Business Innovation Research (SBIR) Phase I project proposes to develop methods to use Sublancin 168 for detection, inactivation and decontamination of Bacillus spores.

The commercial application of this project will be in the area of detection and control of Bacillus anthracis, the causative agent of anthrax.